Graduate Research Traineeship Program in Mathematical Biology

This award to a group including 10 faculty in 4 departments (Applied Mathematics, Botany, Statistics, Zoology) provides 6 positions for graduate students enrolled in an interdisciplinary training program in applied mathematics and biology. The students are to be divided among three areas of biological research: cell and developmental biology, physiology and morphology, and ecology and evolution. The progrm will emphasize the role of mathematics in understanding and guiding experimental observations. As part of its training activities, the program will offer a new "super-course" that will bring in distinguished outside faculty to give series of lectures on specialized topics.